Novel Synthesis of Shape Memory Alloys using ElectrochemicalTechniques

Selected shape memory alloys are synthesized using electrochemical deposition. Three alloy systems are selected for the initial research, In-Ti, In-Cd, and In-Pb. The structure and shape memory transformation behavior are compared to conventionally-processed alloys. Layered shape memory Fe-Ni alloys are to be produced in a modulated, nanolayer form using pulse plating. Characterization methods include X-ray diffraction, internal stress measurement, scanning and transmission electron microscopy, and Auger spectroscopy. %%% Electrolysis offers potentially valuable synthesis capability, which has been improved with recent advances in technology. Direct deposition in the form of thin films or multilayer configurations can be used to produce unique materials.